Examination of In-Situ Oil Spill Remediation at McMurdo Station

This proposal will test PES-51 for the in-situ bioremediation of oil spill contamination. PES-51 is a surfactant derived from oil- degrading bacteria. A bench-scale test program using contaminated soil from McMurdo has been designed to be completed before field testing can take place. The soil will be shipped to the University of Alaska to test the feasibility of remediating McMurdo soil using PES-51. A survey grid to determine the extent and degree of contamination in McMurdo from past operations, both horizontally and vertically has been designed. This survey will consist of two parts 1)a compilation of documentation of fuel spills over the history of McMurdo Station, and 2) a sampling program that includes: a) preliminary mapping of those areas around the station that are "clean" and to delineate contaminated areas, b) a detailed sampling program in known contaminated areas to determine the vertical and horizontal extent of the contamination to the degree possible, and c) a "hot spot" sampling program for small spills or isolated contamination sites in otherwise clean areas.